Genetics of Spontaneous Mutagenesis in Saccharomyces Cerevisiae

This proposal aims at laying a genetic foundation for analysis of the fidelity of DNA replication in yeast. The proposed experiments will begin with the isolation and structural characterization of the mut7 gene. The gene is defined by one allele (mut7-1) that causes temperature-sensitive growth and a five-fold increase in the frequency of spontaneous mutation. Preliminary attempts to isolate this gene by complementation have led to the isolation of another gene, smu-7, which can suppress the lethal effect of mut7-1 at high temperature. This gene will be further characterized, and the regulation of both genes will be studied. The genetic alteration in the mut7-1 will also be determined. Other mutations with a mutator phenotype will be isolated using a mutant yeast strain that takes up and incorporates base analogues into DNA. These mutations will be identified by selecting for (increased) reversion of auxotrophic markers. As yet, relatively little is known about the enzymes that replicate chromosomal DNA in eukaryotic organisms. Extensive investigation of DNA synthesis in E. coli and other prokaryotes has shown that the frequency of errors during replication is remarkably low. This is due to "proof reading" by the DNA polymerase and by DNA repair enzymes; both can detect differences (mis-matches) between the new and old strands of DNA. The proposed study will begin a detailed analysis of genes whose products appear to effect repair of mismatched DNA. Because some repair functions in bacteria are intimately involved with the DNA replication, it is likely that the proposed work will lead to a better understanding of replication in yeast and in other eukaryotes.